Novel Photon Detectors Based on the Photo-Induced Stress of Semiconductor Micromechanical Devices

Proposal Number: ECS-9727208 Principal Investigator: Panos Datskos Title: Novel photon detectors based on the photo-induced stress of semiconductor micromechanical devices Abstract The proposal is to use photo-induced stress in cantilevers fabricated from narrow-gap semiconductors as a means of detecting IR photons. Either optical or capacitance sensing of the cantilever deflection can be used as a measure of the IR signal. The work has important potential of being extended to arrays of cantilever-based detectors.